Undergraduate Mathematics: Technology to Improve Student Capabilities

The mathematical capabilities of undergraduate students is being enhanced by integrating graphical, numeric, and symbolic mathematical software across a broad spectrum of the mathematical sciences curriculum. This is a part of a long- term plan to integrate state-of-the-art mathematical and statistical problem-solving tools into the undergraduate curriculum.